The Role of Mathematical Sciences in Homeland Defense

DMS-0215714
Scott T. Weidman

In the wake of the September 11, 2001, terrorist attacks on
the United States, the U.S. mathematical sciences community
has become increasingly interested in contributing to
homeland security. Many areas of defense and intelligence
rely naturally on advances in the mathematical sciences,
and a large number of talented mathematical scientists have
contributed to those areas over the past 60 years and more.
The current climate provides an opportunity for expanding
that pool of mathematical scientists who are actively involved
in such research. This award will partial support The National Research Council's Board on Mathematical Sciences and their Applications, in conjunction with its Committee on Applied
and Theoretical Statistics, in holding a workshop, preparing
a report, and posting an on-line video on "The Role of
Mathematical Scientists in Homeland Defense" in order to
stimulate the involvement of more mathematical scientists
in major areas of homeland defense.